I-Corps: Printed receive coils for Magnetic Resonance Imaging

The broader impact/commercial potential of this I-Corps project contributes to the growth of clinical cases that qualify for the use of diagnostic and interventional Magnetic Resonance Imaging (MRI). Currently some patient populations, such as pediatrics, cannot benefit from MRI mostly due to the lack of adequate coils. Flexible and printed coils are lightweight and conform well to the human body, increasing comfort during the exam while increasing reliability, reducing the exam time due to the increased SNR obtained when coils are in close proximity to the sample. In pediatric use, the impact will be two-fold; the coils will increase the accessibility of MRI and decrease the use of general anesthesia resulting in less failed scans. The commercialization of these coils could also increase the number of MR-guided non-invasive therapy. Comfortable and inexpensive coils would assist streamline the process flow in hospitals, thus contributing to a more efficient, more affordable healthcare system.

This I-Corps project aims to identify the decisive design features required in order to offer the most value to the users of flexible printed coils for MRI. The project will quantify the benefits brought by printed coils through metrics relevant to customers and will lay the foundations of a successful commercialization plan. Receive coils are critical components to achieve high-quality MR images. Commercially available coils use conventional, high-end expensive electronics and are designed as one-size-fits-all with heavy and bulky packaging. Printed coils are lightweight, flexible and can be manufactured at lower cost, while delivering equivalent results and in many cases better image quality than conventional coils. With this technology, coils can be printed to fit all sizes and properly fit the patient anatomy while offering superior comfort.